Theoretical Models for the Interactions of Polymers and Surfactants in Solution

The research objective is to isolate the factors that control the self-assembly of amphiphilic polymers and surfactants. In solution these molecules aggregate into clusters that alter the macroscopic rheological and phase behavior of the host fluid. In order to relate microstructure to macroscopic properties, the factors that control the structure of polymer-surfactant complexes must be determined. Monte Carlo and analytic techniques will be used to systematically vary the polymer and surfactant concentration, architecture and interaction energies and, thus, to determine the size and shape of the resulting clusters. Scaling laws will then be developed to relate the size of these clusters to the length and number of chains in the aggregate. The scaling laws will be used to relate the microstructure and growth of the cluster to the macroscopic viscosity. Statistical models will be developed to determine the phase behavior of the polymer/surfactant/solvent mixture. %%% The self-assembly of amphiphilic polymers and surfactants in solution is of intrinsic scientific interest and also has many applications. These molecules form comb-like structures and are difficult to model. This work will be one of the first attempts to fully describe these systems. Understanding of these novel materials will assist in the design of macromolecular solutions with prescribed properties. The results of this study will assist in the development of materials that are useful for applications in controlled drug release, viscosity modification, enhanced oil recovery and separation processes.